Theoretical Studies of Classical and Quantum Effects in Superconductors

Research in theoretical condensed matter physics will be performed using both large scale numerical simulations and analytical techniques to study the properties of homogeneous, inhomogeneous and artificially fabricated superconducting systems. This work is motivated by experimental discoveries and will, in turn, lead to predictions which can be tested by experiment. The problems to be studied include quantum fluctuation induced transitions; metastable magnetic properties; and, real time vortex dynamics, including self-field effects. The results obtained from this research will enhance our understanding of the physics of photolithographically fabricated arrays of ultrasmall Josephson junction arrays and of high temperature superconductors. %%% Research on a variety of problems of current interest in condensed matter physics revolving around the properties of very large arrays of ultrasmall Josephson junctions - a type of superconducting switch - will be undertaken. These arrays are important in their own right for possible applications to superconducting microelectronics and are also important for what they can tell us about the basic physics of high temperature superconductors and problems in disordered systems.